Midwest Several Complex Variables Seminar

. The proposal is for partial support of the Midwest Several Complex Variables Meeting that has met annually since 1970s. The primary objective of the meeting is to bring together graduate students, young investigators, and more senior researchers. The program features plenary talks by eminent mathematicians, with subsequent discussions with younger participants divided into groups each led by one of the main speakers. The larger part of the funding will be used for the travel support of graduate students and young PhDs.